Workshop: Opportunities and Research Needs of Adhesion Science and Technology; Stanford University, Stanford, CA; February 26-27, 1987

This proposal describes a two day Workshop on Adhesion Science and Technology to be co-directed by Professor Gerald G. Fuller of Stanford University and Dr. Kashmiri L. Mittal of IBM corporation. It will be held on the 26th and 27th of February, 1987 at Stanford University. This workshop will serve as a forum through which the range of technologies which are impacted by adhesion and coating properties can be appreciated. The subject matter will contain sufficient technical dept ot enable attendees from academic research and NSF to assess the most critical outstanding issues in this field and the areas in which they could most likely particpate and support. The speakers will primarily be chosen from industrial laboratories and will introduce specific applications of adhesion technologies as well as discuss current theories and experimental methods. The applications will include examples from microelectronics, including optoelectric circuits, mass storage media, composite materials, tribology protective coatings. The presentations and summaries of each discussion session will be published in workshop proceedings. The workshop is supported by a number of NSF/ENG programs, including Thermodynamics and Transport Phenomena, Materials Engineering and Processing, Tribology, and Solid and Geo- mechanics. Therefore, the final workshop program will reflect the interests of these programs. (Note: The date of the workshop will probably be delayed until May or June, 1987).